Problems in Neutrino Physics and Quantum Group Field Theory

9320692 Nieves Research in theoretical elementary particle physics will focus on the behavior of neutrinos when they are inside a material medium. Topics will include the propagation, evolution, and electromagnetic properties of neutrinos in media. This work is very important to our understanding of the behavior of neutrinos in ordinary stars and in supernova explosions. ***